Toward Applications of Stochastic Dynamic Prediction

The purpose of this research is to advance the theory and application of stochastic dynamic prediction (SDP). SDP equations predict the mean and other statistical properties of an infinite ensemble of points in phase space. Current deterministic prediction models provide forecasts of the future state of the atmosphere, but these forecasts are less than perfect due to uncertainties in the initial conditions and in the model dynamics. Ideally, one also would like to be able to estimate the quality of the forecast. SDP may provide a way to do so. The benefits are obvious. The feasibility is uncertain due to the magnitude of the computations involved and the complexity of the physics of the atmosphere. The PI plans to explore certain aspects of the problem using several promising approaches developed by himself and Dr. Philip Thompson of the National Center for Atmospheric Research. The results of this research have potential application in a wide variety of fields involving fluid motions.